Sea Grant Fellow

9708086 Fiske Funds are transferred to NOAA to support a NOAA Sea Grant Fellow within the NSF Ocean Sciences Division. A highly qualified Ph.D. oceanography student will work with OCE program staff for one year. Valuable experience will be gained by working on ocean science research policy and administration. The Fellow will work with the Oceanographic Technology & Interdisciplinary Coordination Program and the Biological Oceanography Program. The National Sea Grant Federal Fellowship Program is administrated through NOAA's Office of Oceanic Research Programs.